SBIR Proposal Processing Support

*** 9700003 Jones This contract will provide technical support and assistance to the Engineering Directorate Small Business Innovation Research Program under solicitation number SBR96-P. ***